WORKSHOP: Workshop on Instruction-Level Parallelism and Loop Parallelization. Meeting to be held at the International Conference and Research Center for Computer Science (IBFI)

Two communities coexist in the parallel compilation field:
instruction-level parallelism (targeted at multiple functional units within
a CPU), and parallelization of sequential loops (usually targeted at
multiple processors). The goals and techniques used in these
subdisciplines are strongly related, yet different, and there is
surprisingly little interaction between them. During the week of April
19-23, 1999 a workshop on instruction-level parallelism and loop
parallelization will be held at the International conference and Research
Center for Computer Science (IBFI) at Dagstuhl Castle in Wadern, Germany.
The workshop will bring together about forty active researchers from the
two camps. The intention of the workshop is to stimulate intellectual
ferment by presentation of new results and comparison of these two
approaches to parallelism. The workshop's format will make it possible for
participants to give more in-depth presentations than is customary at
conferences. Presentations may include demonstrations of working systems
or prototypes. Attendees will include researchers from the United States
and Europe, comprising many well-known names in the parallelization
community. This proposal requests funds to cover the transatlantic airfare
and registration for participants from the United States.